Strategies for Subcube Management in a Hypercube Computer with Direct-Connect Communication

Three types of subcube management strategies are being investigated. The program can be divided into two parts. The first part is concerned with design and analysis of algorithms that are necessary for efficiently implementing such strategies. Problems to be solved in this part of research are mostly combinatorial optimization problems, and the approaches will be algorithmic and analytic. The second part of this project is concerned with performance evaluations and comparisons of different subcube management strategies. The study will be based on probabilistic models, and both analytic and simulation techniques will be employed.